Cooperative Participation in CFT-Buckling Restrained Braced Frame Testing and International Workshop on Steel and Concrete Composite Construction at NCREE, Taiwan

PI: Subhash Goel, University of Michigan

The purpose of this research proposal is to seek NSF funding for: (1) travel support for a group of 10-12
invited US side participants to attend the International Workshop on Steel and Concrete Composite
Construction in Seismic Regions (IWSCCC-2003) to be held at the National Center for Research on
Earthquake Engineering (NCREE), Taipei, Taiwan, on October 8-9, 2003, in conjunction with Pseudo-
Dynamic Testing of a Full Scale 3-Story composite CFT- Buckling Restrained Braced (BRB) Frame on
October 2-7, 2003, and (2) to partially support a doctoral student to be able to continue analysis and
design studies jointly with the NCREE research team prior to and after the full scale test. The
analysis/design methodologies to be developed will be formulated for incorporation in the new
generation of performance-based design codes. The P.I.'s believe that this program is a good example
indicative of the future trend when international cooperative research will become more common using
globally networked facilities and modern information technology, including the NEES facilities
currently being established in the US.

Research Plan
The proposed research is a follow up of Phase 5 of the US-Japan Cooperative Research Program on
Composite and Hybrid Structures (1993-2000) where major emphasis was place on obtaining more
basic knowledge through studies of components and sub-assemblages. In this current US-Taiwan
Cooperative Program two full scale frames (RCS and CFT-BRB) are subjects of thorough study. The
RCS frame study has been completed, and the study and testing of the CFT-BRBF is currently in
progress. The proposed research proposal has two components. The first component involves carrying
out pretest and post-test analyses and related design implication study of the CFT frame cooperatively
with the Taiwan research team. The second component includes travel of a group of 10-12 US
participants to attend the International Workshop on Steel and Concrete Composite Construction that
will follow immediately after the testing of the CFT frame. The main purpose of the workshop is to
create a forum of researchers, practitioners and constructors to discuss the recent developments and
experiences as well as to explore the challenges and opportunities for further research and
development of innovative composite and hybrid structures in the future.

Broader Impact - Research: The research work will result in rational and well founded seismic
modeling, analysis and performance-based design methodologies for advanced composite structures,
which show promise of excellent structural efficiency and performance. That will accelerate the use of
those structural systems in seismic design practice. The performance-based design and analysis
methodologies as developed in this research will have been validated by testing on full size structures,
thereby convincing the profession and the code writing bodies to incorporate the recommendations
quickly in the future codes and practice.

Broader Impact - Educational and International Cooperation: The research work in this project will
constitute a major part of one doctoral student's research training and education. Therefore, the project
will not only contribute to further advancement of the knowledge base and improvement in the
professional practice and codes, but will also help in educating highly qualified professionals needed to
carry out the earthquake hazard mitigation program in the future. Results from this project will also
lead to important advances in inelastic modeling and design tools that are used in structural analysis
and design courses. Additionally, the project will provide great opportunity for international
cooperation and exchange of research personnel.